NSF Young Investigator

9457735 Jin The overall objective of this research project is to develop accurate and efficient computational methods for analysis of electromagnetic problems in magnetic resonance imaging (MRI) and high power microwaves. The focus will be on the development of hybrid finite element methods capable of simulating large and complex objects. To be more specific, a finite element method will be developed to characterize the interactions between the radio-frequency (RF) field, generated by an MRI antenna, and the human body in an MRI environment. A better understanding of such interactions can provide guidelines for designing MRI antennas that have a high signal-to-noise ratio (SNR) and good RF magnetic field (B1 field) homogeneity in the region of interest. The method to be developed will be able to model the MRI antennas, the environment of the MRI system, and the anatomical and inhomogeneous dissimilar tissues. Based on this method, we then plan to develop an inverse method for a systematic optimization of the design of MRI antennas. In addition, a hybrid finite element methods will be developed to characterize the interactions between high power microwaves and complex cavity situated in a large object such as an airplane. A clear understanding of such interactions is instrumental in developing new electronic system capable of functioning normally in any high-intensity ambient (i) complex internal structures, (ii) external environments, and (iii) coupling of energy form external environments to internal systems. ***